NER: Designing Reliable Computers Using Molecular Nanotechnology

David Lilja
U Minnesota
0210197

Recent work in physics, chemistry, and materials science has
produced nanometer-scale structures out of exotic materials using
sophisticated fabrication techniques. However, very little work has
been conducted in computer engineering to investigate how to build
full-scale computer systems out of these new devices.

The goal of this exploratory project is to begin to develop new
techniques for constructing finite state machines (FSMs) out of
molecular nanodevices. FSMs are one of the fundamental building
blocks of any digital computing system. In this project, we
introduce NanoBoxes as a possible abstraction for constructing
reliable finite state machines for use in molecular computer
systems.

The reliability and error characteristics of molecular nanodevices
are substantially different from the corresponding characteristics
of traditional silicon-based CMOS transistors. These nanodevice
characteristics present new challenges to computer designers which
will require an entirely new approach for designing finite state
machines. The techniques we develop eventually could be used to
build entire computer systems out of molecular nanodevices.

This is a high-risk/high-reward project. The risk is that we need
to develop new approaches for designing computers out of a large
collection of devices which are still under development themselves.
By observing common trends in newly developed molecular devices, we
make assumptions about their weak drive capabilities and their
unstable nature. While we expect that we can adapt and extend
traditional space, time, and information redundancy techniques for
fault-tolerance into this new domain of molecular computers, new
ideas will be necessary to develop appropriate solutions.

This project is high-reward, however, since by conducting computer
architecture research in tandem with research on the nanodevices
themselves, we will be streamlining the development process to be
able to have fully-functional molecular computers more quickly than
if we wait for the nanodevice research to solidify. Furthermore,
while we are tailoring our techniques for molecular nanodevices, our
techniques also will be applicable to error detection and correction
in quantum nanodevices and in nanometer-scale conventional CMOS
devices, which are becoming more fault-prone as transistor sizes
shrink.

This project will make substantial contributions to educational and
human resource development. It will initiate the dissertation
research of a Ph.D. student in electrical and computer engineering
to focus their research in this new area. We also expect to involve
a few M.S. students in this work and possibly provide research
opportunities for undergraduate students through existing internship
programs at the University of Minnesota.